Migration of Facies and Population Patches in Fossils: Testing the Particle-Patch Model

9316417 McKinney In order to help connect macroevolutionary patterns to ecological processes, PI will examine patterns of abundance in fossil populations through a model that focuses on the patchy nature of the geographic distribution of most populations. The model will be tested using benthic foraminifera from a core of Paleogene strata from Georgia.